The Frequency Agile Solar Radiotelescope: A Technical Study and Implementation Plan

AST-0138317
Gary, Dale E.

A 2 year study to investigate the technical challenges for constructing a new technology, frequency agile solar radio telescope called FASR will be conducted. The science measurement requirements for three key science areas: 1. coronal magnetography, 2. solar flares 3. particle acceleration, and space weather will be used to develop the instrument system functional requirements. The proposal contains detailed task lists, personnel assignments, areas of study, and an initial management plan. An initial design study is the deliverable. Products from the design study will be an improved cost and schedule estimates and a better understanding of the engineering and technology scope of FASR telescope and instrument system.
***